A Formal Phonetic Basis for a Universal Phonological Feature Set

This project, carried out at the phonetics laboratory of the University of California, Los Angeles, provides a formal phonetic basis for the features used in phonological theory by making a full account of the complete range of the linguistic phonetic events in the world's languages and their articulatory-acoustic relations. It builds on previous research carried on at the laboratory and fills in existing gaps. It will provide a computer model that interprets linguistic descriptions in terms of features and specifies the corresponding articulatory and acoustic events, thereby making evident what an adequate phonological theory must encompass.